A Fiber-Optic-Based Protocol for Manufacturing System Networking

Computer communication networks are becoming increasingly important for integration of administrative, engineering design, and production processes in the large-scale manufacturing business. The efficiency and flexibility of networks for computer-integrated manufacturing (CIM) can be significantly improved by using optical fibers as the transmission media. Since the physical characteristics of optical fibers are significantly different from those of coaxial cables, the topology and medium access mechanisms in the existing CIM networking architectures need to be revised. The objective of this research is to conduct basic and applied research in integrated office and factory communication networks. The research will focus on the development and analysis of a high- speed fiber-optic-based network protocol that will integrate real- time distributed manufacturing processes with engineering design and plant management databases. Projects of national importance like (1) Manufacturing Automation Protocol, (2) Technical and Office Protocols, and (3) Integrated Services Digital Network will directly benefit from this research.